Structure and Function of Fission Yeast Signal Recognition Particle

Signal recognition particle (SRP), a ribonucleoprotein composed of six protein subunits and one molecule of 7SL RNA, is the first element of the specialized machinery which recognizes proteins destined for export from eukaryotic cells via the secretory pathway. Based on in vitro experiments, it has been postulated that, upon emergence of the signal sequence from the ribosome, SRP binds and arrests translation. When the complex arrives at the endoplasmic reticulum (ER) membrane, SRP interacts with a specific receptor, dissociates, and translation of the protein resumes accompanied by vectorial translocation into the ER lumen. By exploiting the unique advantages of the fission yeast Schizosaccharomyces pombe, we will genetically and biochemically dissect secretory protein targeting, focusing first on the essential 7SL component of SRP. Random mutagenesis of the cloned gene followed by transformation and screening for conditional or partial secretory defects will identify nucleotides which are critical for function in vivo. Conserved sequences and structures will be determined by comparison of 7SL homologs from divergent organisms, allowing generation of specific models for its mode of action which will be tested by site- directed mutagenesis of the S. pombe gene. Suppressor selection will identify other components which interact with 7SL RNA, minimally the fission yeast SRP proteins; other likely targets include the SRP receptor and ribosomal proteins. Concurrent with the genetic experiments, a homologous in vitro system will be developed to study SRP function; it will also be useful for biochemically characterizing defects in the mutants. These studies will provide insight into the mechanism by which cell sort proteins, the salient features of which are conserved between fission yeast and humans.